Developing STEM Teacher Leaders in Classroom Management, Engineering Design, and Induction

This Noyce Track 3 project aims to serve the national need of developing highly effective STEM teacher leaders. Additionally, this project will support 15 fellows in STEM areas by providing professional development in the areas of classroom management, engineering design, and induction. The project components will enable high-achieving secondary STEM practicing teachers to become teacher leaders in their schools and districts.

This project at the University of Houston includes partnerships with seven area School Districts (Aldine, Alief, Cy-Fair, Humble, Katy, Pasadena, and Spring Branch), along with Northbrook High School and the National Math and Science Initiative. Project goals include the following: 1) recruit 15 Master Teacher Fellows (MTFs) to receive intensive training in classroom management (CM) and engineering design; 2) provide financial support to 15 MTFs with salary supplements of $20,000 for 5 years; 3) provide MTFs’ training and opportunity to mentor prospective and practicing teachers in CM and engineering design; 4) enhance the teachHOUSTON induction program by having MTFs lead professional development (PD) in the areas of CM and engineering design and serve as induction mentors; and 5) create an online PD platform of up to 20 virtual courses with key contributions by MTFs on CM and integration of engineering design to build teacher capacity through newly designed resources for prospective and practicing teachers. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what extent does this Noyce Track 3 grant retain STEM teachers in the program and in high-need school districts? (b) To what extent is the Noyce program effective in increasing participants’ ability to plan and execute student-centered classroom management and engineering design? (c) How does this project produce teacher leaders in high-need school districts? The results of this project will be disseminated to help enhance the field. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.